Cellular Organization in the Forebrain of a Novel Neurological Mutant

A new mutation has been discovered in a strain of rats, which produces a fundamental reorganization of the forebrain. This Small Grant for Exploratory Research will establish a stable breeding colony of these mutants, and begin to characterize the cellular organization of the forebrain. It is essential to breed the new strain of rat immediately to preserve the mutation, and make it accessible for experimentation in a variety of studies. Histological analysis of the brain of these animals will identify the types of cells in the novel structure. The established colony will provide a valuable novel model system as a resource for the community. Research on this mutation has potentially very high impact across neuroscience, because such a large change in structure suggests novel tests for structure-function relationships, as well as novel tests about neural development. Its potential impact extends beyond neuroscience to developmental biology and to biopsychology as well.